Special Year in Algebraic Geometry

9402837 Katz This award supports a special year in algebraic geometry at Oklahoma State, focusing on mirror symmetry, Donaldson theory for algebraic surfaces, and related areas. These are areas of algebraic geometry for which connections with different areas of mathematics and physics are apparent and emerging. There will be 2-4 visitors in residence for the academic year in addition to the three permanent algebraic geometers on the faculty. In addition, there will be atleast 55 short term visitors; many of these will be participants in two 3 day workshops. The research is in the field of algebraic geometry, one of the oldest parts of modern mathematics, but one which blossomed to the point where it has, in the past 10 years, solved problems that have stood for centuries. Orginally, it treated figures defined in the plane by the simplest of equations, namely polynomials. Today, the field uses methods not only from algebra, but also from analysis and topology. Moreover, it has proved itself useful in fields as diverse as physics, theoretical computer science, cryptography, coding theory and robotics.